Investigation of Transannular Free-Radical Cyclizations in Organic Synthesis (Chemistry)

This program is being supported by the Organic and Macromolecular Chemistry Program. The project involves the construction of a series of naturally occurring compounds of unusual structure. The synthetic strategy into these compounds involves a novel approach in that a large ring structure will be transformed in a single step to structures which contain two or more rings of smaller size. The goal is to demonstrate the viability of a powerful and little-studied carbon-carbon bond forming reaction, transannular free-radical cyclization, in the context of a complex synthetic problem. The method is to be illustrated through the synthesis of the cembranoid natural product, 7,8-epoxy-4-basmen-6-one, which features as the key step two sequential transannular cyclization reactions in a fourteen-membered macrocyclic precursor. This synthetic strategy will allow certain structural and stereochemical features of the macrocyclic ring to be employed in a highly specific fashion during the transannular ring-closures. Molecular mechanics calculations will be employed along with X-ray crystallographic to predict preferred transition state geometries of the reactants and relevant reactive intermediates. High field NMR spectroscopy will be used to determine conformations in solution as an adjunct to the tools noted above.